The Oldest Metazoa in the World

Recently, impressions of what may be soft-bodied animals have been discovered in USNM collections from the Belt Supergroup in Glacier National Park. Existing material is too scanty and poorly preserved to convincingly document that the markings are of metazoan origin. Exploratory field work will be conducted in the area from which the museum collections were made, in hopes of finding more definitive specimens of these possible metazoans. If the specimens do indeed represent metazoans, the age of the oldest known animals would be extended from about 700 to 1400 million years.